SBIR Phase I: Low-Cost, Vision-Enhanced, High-Efficiency Heat Cable Control System

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project will be realized through the development of vision-enhanced, smart control for heat cables. Heat cables are installed on millions of roofs in North America to prevent build-up of roof-damaging ice dams but they currently have flawed, rudimentary controls, and consume large amounts of energy (tripling the energy consumption of a typical home during the winter months). Combining information from easy-to-install roof cameras, temperature sensors, and local weather forecasting, a machine learning system will turn on heat cables only when needed. A total of 8 billion installed feet of heat cable on roofs and gutters in North America annually consume 135 Terawatt-Hours of electricity and emit 52 Megatons of carbon dioxide and methane. Preliminary data indicate this consumption, the associated costs, and carbon dioxide and methane emissions can be reduced significantly, creating a large commercial impact for residential and commercial building owners, a payback period for the customer of one winter season, and a considerable decrease of the nation's carbon footprint. Because of heat cables' large electrical power consumption, the technology will also provide electrical utility companies with a tool to stabilize the electrical grid and load balance, contributing to national energy security and competitiveness.

This SBIR Phase I project proposes to pursue innovations to enhance the energy efficiency of heat cable systems. This system will including an energy harvesting system to power a roof-mounted, camera-based, sensor system that uses machine-vision and machine-learning to precisely control roof heat cables based on their primary function: the prevention of ice dams. Surprisingly, little is known about optimal heat cable control, including key input variables such as temperature, weather and the variability and role of roof features (type, angle, orientation). Collecting and analyzing these data will further the understanding of optimal heat cable control. Heat cable power consumption will be compared to historical and model-derived power consumption. Technoeconomic analysis will help to fine-tune and scale the revenue model. The energy harvesting technology based on trickle-charging the roof-based camera system battery will make the system cordless, easy to retrofit to existing installations, and low-maintenance.